Geochemical Studies of Processes of Crust-Mantle Evolution

Measurements of isotope ratios in igneous and metamorphic rocks and determinations of trace element concentrations will be used in conjunction with petrographic studies and theoretical studies to improve current understanding of important fluxes of the geochemical cycles of the solid earth. Emphasis will be placed on Ca isotopic studies of igneous rocks from island arcs and mid- ocean ridges and granitic rocks from continental areas. The objectives are to put new constraints on the major element composition of the lower continental crust and to evaluate the cycling of Ca through island arc-subduction zone systems. The PI is developing a new isotope laboratory and this award will be critical to its initial successful operation.